Life History Strategies of Cretaceous Dinosaurs

Eggs, embryos, and ontogenetic stages of particular dinosaur species allow for the determination of life history strategies. Characteristics such as egg size, egg clutch size, hatchling size, maximum size of nestling, growth rates during life, and size of individuals at sexual maturity can presently be determined for at least four dinosaur species from Montana and Alberta. PI will exploration and collection of eggs and young of additional taxa from the Lower Cretaceous Cloverly Formation and Upper Cretaceous Judith River Foundation, well as other Cretaceous formations. Compilation and comparison of these data will allow hypotheses to be made concerning the evolutionary dynamics of dinosaurs. More life history information will be known for these dinosaurs than for any other extinct vertebrate.